Finding Images Intensity Boundaries

This is the first year of a three-year continuing CAREER award. This project is developing computer algorithms that find object boundaries in CCD camera images using cues other than changes in average grey-scale intensity: color, texture, and stereo. Intensity edge finding is complicated by slopes and boundaries within regions, caused by shading. These effects are much smaller for non-intensity features, particularly color. In the presence of texture, non-intensity features may offer comparable spatial resolution. Techniques are being developed for computing each feature with low noise and at high-spatial resolution. Better opponent color values can be produced by modifying the framegrabber interface. Several broadly-tuned energy operators are being evaluated for use as texture features. Preattentive stereo information can be computed using a narrow-range matcher or by meauring the degree of fusion with texture energy operators. The comparative reliability of different cues is being assessed. Finally, boundaries can be extracted using a new robust estimation technique and used as input to existing shape analysis and attentive texture identification algorithms.